REU Site - High Performance Polymeric Adhesives & Composites

This REU Site Award provides an opportunity for ten undergraduate students in science and engineering to conduct twelve weeks of independent research under the guidance of faculty in the NSF Science and Technology Center for High Performance Polymeric Adhesives and Composites at Virginia Tech. The students will be doing research focusing on polymer synthesis, surface and interface science, fabrication and processing of composite and adhesive materials, testing and characterization of materials systems and final constituents, and computer modeling and simulation to understand and predict performance of advanced polymeric adhesives and composites. %%% The interdisciplinary nature of this program provides a realistic exposure to large scale research on complex problems wherein many lines of attack involving different scientific and engineering disciplines must be brought to bear on key issues in order to make progress. Students have an opportunity to work closely with faculty and other graduate students and to utilize state-of-the-art equipment and instrumentation in their work. They also receive professional development training through technical presentations of their work at a technology symposium held at the end of the summer, and through preparation of a final written report.